Pattern Formation by Motile Bacteria

Berg 9405284 Under certain conditions, cells of chemotactic strains of the bacteria Escherichia coli and Salmonella typhimurium aggregate in spots or stripes distributed in symmetrical arrays. Each aggregate contains a large number of cells that have migrated toward a discrete locus in response to a signal generated by the cells themselves. This signal is produced when cells are suspended in liquid media and exposed to environmental stress, or to succinate, fumarate or malate (intermediates of the tricarboxylic-acid cycle), or when cells are grown in soft agar with one the these compounds as substrate. The primary signal is aspartate, produced from fumarate and ammonia. A secondary signal is glutamate, produced by an unidentified pathway. We propose 1) to establish the general mechanisms regulating pattern formation, 2) to identify the glutamate pathway, 3) to learn how these pathways are activated by different kinds of stress, and 4) to learn whether aggregation has an adaptive value. To meet the first goal, we will obtain a more quantitative description of aggregate formation in liquid media, characterize different modes of pattern formation in soft agar, including migrating slugs, map gradients of aspartate, and attempt to construct suitable mathematical models. More broadly, we hope to learn how large numbers of identical cells are able to come together in response to chemoattractants to form multicellular bodies and symmetrical patterns. This is a cross-field endeavor that links sensory transduction responses to stress and secretion of signal molecules to the problem of biological self-organization. It does so with a model system readily amenable to genetic and biochemical manipulation. %%% Bacteria are the simplest free-living organisms. Species that are well understood include Escherichia coli, that lives in your gut, and Salmonella typhimurium, that causes food poisoning. Both cell types are motile and can change the way they swim in response t o changes in concentration of certain chemicals. We have found conditions under which the cells excrete chemical attractants (the amino acids aspartate and glutamate). As a result, the cells swim toward one another and aggregate. When cells are grown on a gel- like medium (agar), these aggregates form a variety of remarkable geometric patterns, which change depending upon the amount of available nutrient. If the nutrient concentration is high enough, the aggregates behave like multicellular organisms, moving over the surface of the agar and consuming one another. Can we understand this biological self-organization in molecular detail? The answer is yes, because we a dealing with a model system made of cells readily amenable to genetic biochemical manipulation. This work links several areas of basic biology of current interests, including motile behavior, metabolism, response to stress, self- organization and pattern formation. ***